MRI: Acquisition of a Laser Scanning Multi-Photon Confocal Microscope to Investigate Structure and Dynamics of Soft Materials of Biological and Synthetic Origin

Technical Abstract

This proposal is for the acquisition of a laser scanning Multi-photon Confocal Microscopy Facility
(MCMF) that will support a core group of faculties at Carnegie Mellon University (CMU) spanning eight
departments and two colleges. The MCMF facility will include a point-by-point standard and resonant
scanning module capable of acquiring images with high spatial and temporal resolutions, a multi-photon
system consists of Coherent Chameleon XR Ti-Sapphire pulsed laser, and a fluorescence lifetime imaging
microscopy (FLIM) module. Acquisition of a laser scanning multi-photon confocal microscope will fill a
void in the existing imaging facilities at CMU by providing experimental capabilities that include
fluorescence recovery after photobleaching, and fluorescence resonance energy transfer, and will have an
immediate impact in numerous established and nascent research projects of senior and junior faculties
investigating the structure and dynamics of soft materials. For example, MCMF will allow (a) direct
visualization of phase transitions, self-assembly, defect dynamics, and morphology evolution in synthetic
soft materials, (b) real-time imaging of cellular and sub-cellular localization of native and synthetic
macromolecules related to fundamental biological discovery and disease therapy in biological soft
materials, and (c) development of adaptive algorithms for efficient acquisition and analysis of complex
biological images. The MCMF will also offer a unique opportunity for integration into classroom
instruction and outreach activities by offering the possibility for students to gain direct, "hands-on"
experience with microscale and smaller systems including cells, macromolecules and microdevices. Our
goal is to use the proposed MCMF to bring together scattered and diverse researchers at CMU and local
industry who will exchange ideas and expertise while working in close proximity and as a potent catalyst
for nucleating new multi-disciplinary research and education.

Non-technical Abstract

Laser scanning multi-photon confocal microscopes allows for the imaging of microscopic objects and their
dynamics deep within a three dimensional sample with very little photo-damage. As a result, confocal
microscopes have become indispensable tools to perform state-of-the-art measurements in soft materials.
Visualizing the structure and dynamics of soft materials at the microscopic scale allows for better
understanding of their self-assembly and macroscopic properties. The proposed laser scanning Multiphoton
Confocal Microscopy Facility (MCMF) will enable an exciting array of diverse research across the
Carnegie Mellon University (CMU) campus. For example, MCMF will enable the development of better
composite materials, increase the understanding of cellular mechanisms related to aging and embryonic
development, improve drug delivery studies, etc. We also plan to develop a course on Advanced
Microscopy for graduate and undergraduate students that would utilize the proposed facility. The highly
visual nature of the research and education enabled by the facility will attract and inspire undergraduates
and high-school students to high-level science by making complex ideas more tangible. Using the MCMF
we will develop age-appropriate modules intended to communicate concepts of visualization of microscale
systems via established outreach programs at CMU that target K-12 students and teachers particularly in
schools with large under-represented groups. The MCMF will also increase ties with industry, other
universities and the public.